Collaborative Research: CRCNS Research Proposal: Learning the structure of neural population encodings from multi-embedding manifolds and dynamics

Visually, experience causes large networks of neurons to respond in idiosyncratic patterns. This project investigates how those firing patterns of neurons across the brain represent the visual information present in the external world, by measuring large quantities of neurons in different regions of mouse visual cortex, while the mouse experiences different kinds of experimentally controlled visual stimuli. To make sense of the huge amounts of data these neurons produce, the team uses tools from machine learning. This work can reveal how the brain solves problems that engineers are trying to solve in artificial intelligence. Those lessons can help build AI systems that are more capable and efficient. They also show how the many kinds of neurons in the brain work together to process information. Additionally, the project builds a skilled neuroscience and machine learning workforce that will support AI and biotechnology.

This project develops and applies a novel "encoding manifold" method to understand and visualize how large populations of neurons represent visual information. The method is built on a machine-learning framework that com bines manifold inference with tensor decomposition and adaptive kernel estimation. The investigators construct these manifolds from neural responses to two kinds of stimuli: naturalistic visual flow patterns and simpler artificial patterns. The responses are recorded with multi-electrode arrays in the retina and visual cortex of awake, behaving mice. The team then compares the structure of these biological manifolds to those of deep convolutional neural networks, which are widely used as models of visual processing and for AI applications.